International Conference, Special Functions 2000: Perspective and Future Directions

This award is for the partial support of a conference in the field of Theory of Special Functions. The main emphasis of the conference will be on application of special functions in Number Theory, Quantum Groups, Mathematical Physics, Combinatorics and Computer Algebra. Such a multidisciplinary character of the conference makes it a significant event in the development of the field itself and its applications. The conference will be held in conjunction with the session of the Advanced Study Institute funded by NATO and will attract leading researchers in the field from many different countries and many young investigators.
The conference will be jointly supported with the Division of International Programs.